ONR/NSF: Superconducting Interface Structures and TunnelingJunctions

9504357 Ammar The experimental High Energy Physics Group at the University of Kansas plans to continue its studies of e+e annihilations in the energy region the upsilon resonances using the CLEO II detector and the CESR storage ring at Cornell. The topics to be studied include exclusive B decays to charm, exclusive b->u transitions, charm meson and baryon decays. The group will take a lead role in providing the monitor and control system for the upgraded CLEO III detector to be completed in 1997. ***